Combinatorics of affine Lie algebras and loop groups

This project relates combinatorial, algebraic, and topological aspects of
affine Lie algebras and loop groups, and consists of three connected
investigations. The first part explores the factorization phenomenon, a
direct and unexpected link between the representations of
finite-dimensional Lie groups and infinite-dimensional loop groups. The
second part seeks to relate two important combinatorial tools, the
Littelmann and Kyoto path models, to the geometric topology of loop groups
as studied by Bott and Mirkovic-Vilonen. The aim is to give a natural
geometric framework for these tools, which are originally defined in purely
combinatorial terms, in order to better understand their combinatorial
structure. The third part seeks to compute explicit bases for the
(co)homology and K-theory of loop groups, so-called affine Schubert and
Grothendieck polynomials, applying the geometric approach of Bott-Samelson
to extend and simplify the recent work of combinatorists.

Loop groups are symmetry groups of infinite-dimensional objects, but are
closely analogous to symmetries of finite-dimensional objects such as
spheres. Loop group symmetry, at the boundary between tame (finite) and
wild (intractable) problems, is crucial in many areas, such as the
Langlands program in number theory, conformal field theory in particle
physics, soliton theory in integrable systems, and solvable lattice models
in statistical physics. Precise combinatorial analysis of loop-group
representations makes possible explicit formulas and solutions in all these
areas. Furthermore, the resulting combinatorics of periodic permutations
and Young tableaux has applications to problems of computer science such as
sorting algorithms and network design in cases which are infinite, but
periodic.